"US-China Seminar on Multiscale Damage in Relation to Environment Assisted Cracking"

US-China Seminar of multiscale damage
in relation to environment assisted cracking
Submitted by
Profs. George C. Sih and Herman Nied
ME and Mechanics Department
Lehigh University, Bethlehem, PA 18015

Abstract

The effects of inhomogeneities caused by defects interacting with the environment at the nanoscale has been known to influence the macroscopic behavior of structural components. Such findings will be discussed in a US-China seminar hosted by the City University of New York, George Washington University, Lehigh University and Stanford University. It is the hope that the results will benefit those who are actively involved in research and teaching graduate students in the USA and China.